Composites for Aerospace Applications, Indo-U.S. Workshop, Bangalore, India, December 1989, Group Travel Award in Indian and U.S. Currency

ABSTRACT NARRATIVE Description: This proposal requests funding for the travel and subsistence of ten U.S. scientists to a one-week U.S - Indian Workshop on Composites for Aerospace Applications to be held at the Indian Institute of Science in Bangalore, India in December,1989. The cooperating principal investigators are Dr. J.N. Reddy of VPI and Professor A.V. Krishna Murty of the Indian Institute of Science, Bangalore. Dr. Murty is the initiating scientist in India. Upon his receipt of approval from his government to organize a conference in this scientific field, Dr. Murty invited Dr. Reddy to coordinate and lead the U.S. delegation. The list of invited U.S. participants was proposed by Dr. Murty and was included in his proposal submitted to the cognizant Indian government agency, the Department of Science and Technology. The workshop will provide opportunity for about thirty papers to be delivered and discussed. The papers will be published in book form as a state-of-the-art work on the various topics on composite materials and structures and their application to aerospace structures. Scope: The purpose of the workshop is to foster a detailed exchange of recent advances related to the development of novel composite systems, thermo-mechanical models, computational schemes and design methodologies for advanced composite materials for space applications. The workshop will bring together scientific research scientists from the universities and private institutions of the two countries to work together in the areas of composite material systems and structures. The direct and rapid exchange of information, by individuals from both the public and private sectors of the two countries, in the areas material science, mechanics, analytical modeling, advanced techniques and software for use in practical designs, and fabrication and manufacturing will provide a cross-disciplinary exposure of information that meets a major objective of the U.S. - India Cooperative Science Program. The workshop is also intended to assist in the concept formulation of future collaborative research proposals.